CAREER: Deciphering Earth’s early atmosphere using windblown ripples on Mars

Earth’s atmosphere is the product of billions of years of planetary and biological co-evolution. Clues about Earth’s past atmosphere are elusive, with reconstructions of Earth’s past atmospheric density typically only providing upper bounds and thus limiting understanding of the conditions under which complex life first arose. This project explores the implications of a novel lesson learned from Mars that could prove key to deciphering Earth’s atmospheric past. In 2015, NASA’s Curiosity rover observed a type of windblown bedform—a sinuous ripple with meter spacing—that is not found in Earth’s sandy deserts today. These ripples can only form under a less dense atmosphere, and their size increases with decreasing atmospheric density. This project proposes to conduct analyses of two of Earth’s oldest reported dune-formed sandstones from the Archean (2.5–4.0 Ga) eon to investigate what this new method reveals about Earth’s past atmosphere. The project’s goals are to (1) characterize the grain-to-bedform-scale sedimentology of these sandstones to identify and quantify any records of atmospheric density; and (2) strengthen the US geoscience workforce by inspiring and training the next generation of Earth scientists through fieldwork. This work will be a model for using lessons learned from another planet to better understand our own.

The project’s goals will be addressed through a combination of research and education tasks. Research tasks will be primarily anchored in fieldwork. Targeted aeolian successions include select intervals of the 2.64 Ga Vryburg Formation, Transvaal Supergroup, South Africa, and the 3.43 Ga Strelley Pool Formation, Warrawoona Group, Australia. At each field site, the research will describe the stratigraphy of targeted intervals, provide measurements of set thicknesses to reconstruct bedform dimensions, sample target facies for lab analyses of zircon microtextures to aid paleoenvironmental interpretations, and estimate paleoatmospheric density from reconstructed bedform dimensions. Education tasks include the creation of a recurring field course on aeolian stratigraphy open to US college students, training undergraduate students in the field and in the lab, generating virtual field trips, and training Archean geology experts to analyze zircon microtextures through a hands-on seminar.